Sensing, Actuation, and Flow Control with Colloidal Devices

Abstract
CTS-0097841
David Marr, Colorado School of Mines

The PI proposes to develop colloid-based flow control devices capable of sensing and actuating using optical trapping techniques. Micro-sized check valve, directional valve, and colloid pump are to be built based on single colloidal particles to effect flow control. These devices will have broad applications in biological and engineering systems.